Dissertation Research: Gene Flow, Reproductive Success and Inbreeding Depression in Fragmented Populations of Three Tropical Understory Trees

As tropical forests are cleared for agriculture, tropical
trees become restricted to isolated "islands" of habitat. If pollen
and seeds do not move effectively among these fragments, local mating
occurs, increasing inbreeding and the erosion of genetic diversity.
Inbreeding and reduced genetic diversity, in turn, can diminish seed
production and seedling vigor, threatening population viability.
This study uses genetic markers to study how fragmentation affects
pollen movement and inbreeding in three animal-pollinated tropical
tree species in Costa Rica. DNA fingerprinting will be used to
determine pollen sources for seeds produced in forest fragments and
how levels of inbreeding and genetic diversity are affected by pollen
movement. Comparing patterns of gene flow and seedling vigor between
fragments and a nearby continuous forest will allow assessments of
genetic threats posed by fragmentation. Geographic analyses will
show how patterns of gene flow are affected by fragment size and
surrounding landscapes.

Declines in biological diversity represent a profound global
threat. This study will illuminate how habitat loss and fragmentation
are affecting reproductive success, genetic diversity and inbreeding,
all of which can reduce population viability. Because they depend so
obviously on animals for pollination and seed dispersal, tropical
trees in forest patches are at particular risk of extinction. As
plants represent the foundation for biological productivity and
diversity, such losses can result in cascades of extinctions. The
data from this study are thus needed to identify both proximal
threats to tropical trees and to guide longer-term management.